Experimental Validation of a New Scuffing Theory

The onset of scuffing wear will be studied in a device which will allow simulation of the contact conditions of pressure, temperature and contact stress which exist in the elastohydrodynamic conjectures of gears, cams and similar components. The results will be related to molecular adsorption/desorption of the lubricant on the wearing surfaces.